Helium Droplet Isolation Infrared Spectroscopy

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Scoles will apply double resonance infrared molecular beam laser spectroscopy to the study of various chemical problems. Work will continue on Intramolecular Vibrational Relaxation (IVR) applied to molecules at increasingly higher energies, and new work will commence applying helium droplet isolation infrared spectroscopy to examining loosely bound complexes and free radicals in order to understand three-body forces and solute-solvent interactions. Molecules to be investigated include linear hydrogen-bonding species, complexes containing oxygen atoms, and simple molecules like propyne which are solvated by helium. In these studies Scoles will be examining molecules which are highly energized in terms of the internal motions of the atoms relative to one another. Such molecules are usually more reactive than they are in their unenergized state. This work will also shed light on the effect of solvents on such fundamental atomic and molecular interactions as chemical reactions. Hence, this project will be able to shed some light on many different types of chemical processes, from combustion to surface oxidation and catalysis.